SYMPOSIUM: International Symposium on Avian Endocrinology Edinburgh, Scotland; September 14-17, 1992

This award is to provide travel fellowships to young American scientists to participate in an international symposium on avian endocrinology to be held in Edinburgh, Scotland on September 14-17th, 1992. State-of-the-art lectures will be held on a broad spectrum of topics from molecular to behavioral endocrinology. The emphasis of the symposium is on the integration of molecular approaches with the organismal level of analysis. In addition, the forum is organized to encourage and promote the interchange of ideas between the young scientists and well-established, senior investigators from all over the world. Indeed a goal is to bring together the researchers that are developing molecular probes with those that can provide insights as to potential experimental applications of these tools. Some very important initial discoveries have been made using avian model systems because it is in these species that molecular, cellular, behavioral, and ecological aspects of hormone action are best integrated. The integration from molecular to organismic levels could lead to a better understanding of basic mechanisms underlying physiology and behavior. The proceedings will be published in a book.